Contact Geometry, Contact Homology and Open Book Decompositions

Abstract

Award: DMS-0804820
Principal Investigator: John B. Etnyre

The focus of this proposal is to better understand the intriguing
nature of contact structures in all (odd) dimensions, with
special attention given to dimension three and to apply contact
geometric techniques to questions in topology. The first main
theme of the proposed research is open book decompositions. The
connection of contact geometry and these specially fibered links
have provided a fount of information concerning contact
structures and low-dimensional topology. As part of this proposal
this fundamental connection will be exploited to define and study
new invariants of contact structures and special knots in them -
specifically, Legendrian and transversal knots. From prior work
it is clear these invariants have subtle connections to the famed
tight vs. overtwisted dichotomy in dimension three and properties
of symplectic fillings of contact structures, which in turn are
crucial to applications to topology. Some of the major outcomes
expected from this part of the project are various classification
results for Legendrian and transversal knots in tight and
overtwisted contact structures and a better understanding of the
fundamental process of contact surgery. The project will also
study the connection between contact structures and open books in
high dimensions with the goal of illuminating existence questions
in high dimensions and trying to generalize the notion of
overtwistedness here as well. Similar to the connection with open
books, contact structures are also related to foliations. This
connection has been instrumental in applications of contact
geometry to low-dimensional topology. Many of the outstanding
questions concerning this connection will be explored. A second
main theme of the proposal is the development and analysis of
Legendrian contact homology in higher dimensions. There is a
great deal of beautiful analytic and algebraic structure in this
theory, much of which is yet to be discovered. Moreover, through
the elegant conormal construction one can then use this to define
invariants of manifolds and of their embeddings in Euclidean
space. These invariants appear to be extremely powerful and will
be thoroughly investigated.

Contact structures on manifolds are very natural objects, born
over two centuries ago, as a natural language for geometric
optics, thermodynamics and classical mechanics. Everyday, one
encounters contact structures when parallel parking a car,
skating, or watching the prismatic play of light in a glass of
water. Contact structures have been studied by many
mathematicians and seem to touch on diverse areas of mathematics
and physics, but only recently have they moved into the
foreground of mathematics. This is due to the many remarkable
breakthroughs in contact topology, resulting in a rich and
beautiful theory with many far reaching applications to areas
such as three and four dimensional topology (that is the
structure of space and space- time), string theory and large N
dualities in modern physics, and fluid dynamics. The Principal
Investigator will study the relation between contact geometry and
various topological objects (such as open book decompositions and
foliations). In addition he will develop analytic and algebraic
tools for studying contact structures in high dimensions. As a
whole it is expected that at the conclusion of this project we
will have a much better understanding of contact structures in
all dimensions and see many more surprising implications for low-
dimensional manifolds.